Collaborative Research: Surface Subgroups of Lattices in Semi-simple Lie Groups

The study of symmetry has proven to be surprisingly powerful and illuminating. Symmetry comes in two forms: the discrete symmetries of a crystal and the smooth symmetries of a continuous realm, such as the surface of a sphere. These smooth symmetries determine the shape and form of the universe both in its totality—the cosmos—and the smallest scale, in the interaction of individual particles that make up all of matter. This project will investigate the relationships between smooth and discrete symmetries, focusing on how symmetries of two-dimensional realms can be embedded into symmetries of larger, more complex, and more mysterious spaces. One aim of the project will be to use artificial intelligence to produce computer programs that will allow a wide audience to see into crystals and their generalizations in more complex realms of symmetries.

The project will seek to classify surface subgroups of a lattice in a given semi-simple Lie group that are closely aligned with a given sl_2(R) subgroup. The first step is to consider three or four definitions of “closely aligned” and prove, if possible, that they are equivalent. The next step is to show that any complete assembly of good pants groups, with good matching, results in a surface group that is closely aligned. The final and most demanding step is to show, in certain cases, that the good matching of good pants can be performed, and, in other cases, the proportions of good pants can be adjusted to allow for matching, using the good pants homology that was developed to prove the Ehrenpreis conjecture. In certain cases, such as the SU(1, 1) in SU(2, 1), Toledo rigidity (and related principles) may actually rule out the existence of closely aligned surface subgroups.